US-India Cooperative Research: Thermo-tectonic Evolution of the Himalayan Metamorphic Rocks, Sikkim, India

0002004
Ganguly

Description: This award supports US-India Cooperative Research: Thermo-tectonic Evolution of the Himalayan Metamorphic Rocks, Sikkim. US PI Jibamitra Ganguly, University of Arizona and Somnath Dasgupta, Jadavpur University, Calcutta will study the presence of an inverted metamorphic Barrovian sequence along the 2000-km length of the Himalayas. Studies which consider the Himalayan metamorphism within the framework of the Indian-Eurasian plate collision have not satisfactorily explained the inversion of the Barrovian isograds. The PIs will use an integrated approach in this study that includes field relations, petrographic studies, laboratory studies and numerical modeling.

Scope: The international collaboration is highly advantageous to this study. Professor Dasgupta is a distinguished scholar and a preeminent field geologist in India. His recent work that was published in the Journal of Petrology (1998) is a major contribution to understanding tectono-metamorphic processes in the Himalayas. NSF's Division of International Programs and the Government of India's Department of Science and Technology and Geological Survey jointly support this research.